Bringing Spoken Language Systems to the Classroom for Learning and Language Training with Hearing-Impaired People

ECS-9726645 Ron Cole Prof. Cole and his colleagues will evaluate the potential of their electronic-based spoken language systems to improve learning, language skills and creative expression in profoundly deaf children. Students attending the Tucker-Maxon Oral School will use the integrated speech recognition, text-to-speech synthesis and an artificial talking head developed at the Oregon Graduate Institute's Center for Spoken Language Understanding.